Analog Circuit Instruction Improvement

This project enhances the curriculum of an electrical engineering technology program by providing a laboratory environment for the study of analog circuits using Computer Aided Engineering techniques. The laboratory equipment includes Rapid Systems spectrum analyzer/digital storage oscilloscopes connected to personal computers. These systems provide significant spectral analysis digital sampling capability at low cost. Students using the lab are able for example, to sample transients, save waveforms and later compare these to new waveforms. This award is being matched by an equal sum from the grantee.